International Workshop on Predictive Modelling of Composite Materials

ABSTRACT
International Workshop on
Predictive Modelling of Composite Materials
Project Summary, NSF Proposal # CMS-0622381

The essence of the Meeting through the presentation of plenary papers only and specialized workshops, is the identification and subsequent avoidance of all conceivable sources of weakness at the nano and micron level of material architecture; and when coupled with methods of predictive design to the complete prevention of misfortune of composite structure metres in length.

Attention focuses on how to optimize designed microstructures, nano-architectural materials, MEMS and smart materials, and information technology materials. Reporting on observed phenomena and presenting critical measured experimental data, making links between compatible modeling techniques and predicting behavior are vital ingredients to a successful totally integrated material/structure design methodology. Built into physical models will be those essential processing variables that lead to new and innovative fabrication methods.

Bringing together key academicians with partners in the aerospace and related industries, for example, will significantly improve the basis for testing, evaluation and certification methodologies, thereby unlocking the timely opportunities in scientific achievement and new product introduction in aerospace.